Wireless Communications Model Program Development

ABSTRACT

Proposal No.: 0302909
Title: Wireless Communications Model Program Development
Institution: Brookdale Community College
PI: Qaissaunee, Michael

Brookdale Community College, working as a regional partner under the direction of the National Center for Telecommunications Technologies (NCTT), is modifying an existing Electronics Engineering Technology AAS degree to include wireless communications and creating model AAS degree and certificate programs in wireless communications articulated from high school through community college and to the university level. The new programs with multiple entry and exit points will prepare technicians for the wireless communications industry.

The project components include curriculum development and adaptation and program development, professional development for high school and community college faculty, and development of 2+2+2 articulation in wireless communications. As an NCTT regional partner, the project staff is working to implement similar programs throughout the region and generally contribute to program development and improvement at collaborating institutions. In addition, this ATE project serves as the focal point for regional dissemination and training to regional business and industry, through the development of materials and faculty.

Besides NCTT, strategic partnerships for this project include the National Workforce Center for Emerging Technologies (NWCET), The New Jersey Center for Advanced Technological Education (NJCATE) and the Global Wireless Education Consortium (GWEC). Other project partnerships have been established with post-secondary institutions, area technical high schools, and regional industry.